Studies of QCD Processes and Heavy-flavor Production in Fermilab Experiments E672 and D-Zero

9312774 Margulies This award is for research in elementary particle physics by a group which includes three faculty members, a postdoctoral research associate and two graduate students. They will continue their involvement on QCD processes that result in muon pairs in the fixed-target experiment E672 at the Fermilab Tevatron. The group's analysis efforts are concentrated on events with psi- particles, some fraction of which are B-meson decay products. With these they expect to obtain results on B production and exclusive decay rates. They will also continue to search for charm hyperon decays among the selected events. Another activity is their R&D on scintillating-fiber tracking. That is done with the near-term aim to provide a tracker for the upgraded D0 detector at the Tevatron and the ultimate goal of including a fiber tracker in the detector SDC at the Superconducting Super Collider. ***